MRI: Acquisition of a Laser Scanning Confocal Microscope to Build an Integrative LIfe Sciences Imaging Program and Create New Research Opportunitiesat Whitman College

This Major Research Instrumentation award funds the acquisition of a confocal microscopy system at Whitman College. The new confocal system greatly expands Whitman College imaging capabilities, provides new research possibilities for undergraduates, and improved opportunities to integrate research into courses in Biology, Physics and our integrative Biochemistry, Biophysics, & Molecular Biology Program. Research projects that will utilize the new microscope include studies of neuronal growth and neural system development, protein crystallization, plant physiology, pollen formation, and a range of other topics. The system is also integral to a workshop co-taught by Physics and Biology professors. The confocal will be the only accessible instrument of its kind in the region, and will have a broad impact on the surrounding community through use by researchers at neighboring institutions and for demonstrations in existing Whitman outreach programs for middle school teachers, middle school and Latino high school students. Results from the studies conducted with the confocal microscope will be broadly disseminated through abstracts and peer reviewed publications, as well as by active participation of students and faculty at professional meetings.